Teleseismic Probing of the Slave Craton: A Glimpse Into One of Earth's Oldest Continental Lithosphere

The investigators propose to implement and apply a set of teleseismic
imaging techniques to better constrain the nature of physical and chemical
processes in the assembly, stabilization, and post-stabilization reworking
of the Slave craton (Northwest Territories, Canada). The seismic analyses
will be performed on data that are currently being collected by the
POLARIS project augmented with data from a sub-array to be deployed by the
Geological Survey of Canada (GSC) between 2004-2006. The lithosphere will
be imaged and characterized using established approaches such as body wave
and surface wave tomography, and shear-wave splitting analysis. In
addition, the augmented POLARIS array will allow the application of
high-resolution imaging techniques based on 2D inversion of teleseismic
scattered waves. To date, these novel approaches have produced high
quality images of subduction zone complexes, but they have yet to be fully
exploited in stable continental regions. The detailed seismic images
obtained through these analyses will be integrated with recent geological,
geochemical and geophysical data in order to unravel the tectonic history
of one of Earths oldest cratons. This work should yield an improved
understanding of the accretionary history and evolution of cratons in
general, thereby establishing improved and perhaps new hypotheses to
ground and inspire future investigations of continental dynamics.